Research Experiences for Undergraduates in Physics

*** Graf The Stony Brook Research Experiences for Undergraduates in Physics program brings 13 undergraduate students to the Stony Brook campus each summer for participation in forefront research in the laboratories of Stony Brook physics faculty members. The aim of the program is to foster interest in, and appreciation of, scientific research in physics and to facilitate career planning, by the actual doing of research in a collegial setting, by site visits to research laboratories at Stony Brook and Brookhaven National Laboratory, by weekly seminars on current problems in physics and finally by student presentations of research results in a formal symposium at the conclusion of the program. Outstanding projects will be presented at the national student symposia. The program offers research opportunities in the areas of nuclear physics, particle physics, lasers and optics, solid- state physics and atmospheric physics. Most projects are experimental, but a few are theoretical. Recruiting efforts concentrate on sophomore and junior level physics majors of high academic standing, many from colleges in which research opportunities are limited. Particular efforts are made to attract women and students from under- represented minorities. ***